PostDoctoral Research Fellowship

This award is made as part of the FY 2017 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Laszlo M. Lovasz is "Combinatorics and Graph Theory: Graph Limits." The host institution for the fellowship is the University of California-Los Angeles, and the sponsoring scientist is Terrence Tao.